Mathematical Sciences: Topology, Geometry and Physics

9505059 Bott The proposed research covers various topics from differential topology, algebraic geometry and number theory: the topics include knots, smooth manifolds, and symplectic geometry. Differential topology deals with the existence and uniqueness of differentiable structures on a (topological) space - a differentiable structure on a space enables one to do calculus on the space. Interestingly enough, recent advances in theoretical particle physics are fueling much of the exciting developments in this area of pure mathematics.